Constraining Slip Distribution of the Cascadia Subduction Zone Offshore Central Oregon with Seafloor Geodesy

This proposal seeks to initiate geodetic measurements of plate motion in the Cascadia subduction zone. Three sites off the Oregon coast, one on the incoming plate to measure relative plate motion and two on the continental slope to measure motions related to fault motions and deformation will be monitored for horizontal displacement at the cm scale. These will be the first offshore monitors of upper-plate Cascadia motion and fault behavior. This work will lead to a better understanding of earthquake and tsunami risk in Cascadia. It implements a new autonomous approach to data collection. It places permanent benchmarks on the seafloor so that monitoring can continue into the indefinite future. Transponders will be recovered and reused and become part of instrument pool that can be used to extend these studies in the future